High Performance Liquid Chromatography with Computer Data Acquisition in Upper-level Chemistry Courses

This project will add to the Chemistry Department instrumentation which will both enhance the current high performance liquid chromatography (HPLC) capabilities and give undergraduate students experience in the use of microcomputers to control instruments and acquire data. Recent advances in HPLC instrumentation and columns have resulted in powerful applications in all the subdisciplines of chemistry. As a result, this instrumentation has become an essential tool of research chemists in both industrial and academic settings. Furthermore, recent developments in microcomputer software have made modern instrumentation more powerful and subsequent data analysis more efficient. This project will introduce into the undergraduate curriculum at Hobart and William Smith Colleges a series of laboratory modules in upper-level chemistry and biochemistry courses that allow students to carry out increasingly sophisticated investigations utilizing the HPLC and computer capability. The students will use state-of-the-art separation technology for separation and analysis of complex mixtures. With the computer-enhanced display of both single and dual detector output, students will utilize the capabilities of computerized data acquisition to accomplish simultaneous separation, identification, and quantification of eluted compounds, and rapid comparison of chromatograms by simultaneous display. This modern instrumentation will be used by students in their coursework and in undergraduate research projects.